Development and Test of Analysis Tools for Application to Studies of Ionospheric-Thermospheric Weather and Climatology

The PIs uill define the global-scale ionospheric-thermospheric system with a focus on diurnal characteristics and seasonal controls under solar maximum conditions. Using data from SUNDIAL, the PI will provide comprehensive seasonal coverage of the solar maximum period. Analysis will establish the weather and climatology of the ionospheric-thermospheric system for spring/fall equinoxes and summer/winter solstices under solar maximum conditions. Data will also establish boundary conditions on the NCAR TIE-GCM coordinated modeling efforts, which should define model inputs on the EUV and x-ray regions of the solar spectrum, as well as the components of the thermospheric tides, their amplitudes and their phases. Project results will advance understanding of thermospheric winds, electric fields, and ionospheric density distributions, and establish and important baseline for defining weather and climatology of the ionospheric-thermospheric system for all seasons of the solar cycle.***